Advanced Methods for Performing Static Analysis of Machine Code

The goal of the proposed project is to help programmers create
correct, efficient, reliable, and secure software systems by providing
improved static-analysis techniques that can (i) verify properties of
a program's behavior, and (ii) find potential bugs and security
vulnerabilities in programs. The project will concentrate on the
analysis of machine code: the objectives are to enhance the scientific
basis for static analysis of machine code, to create prototype tools
that apply the techniques developed in tools for analyzing safety
properties of machine-code programs, and to measure how well the tools
perform.